Tapered Transitions for Integrated Optics - Analytical Study

High speed, high capacity optical communication systems will possess integrated optical or optoelectronic circuits and devices connected to single mode optical fibers. Tapered transitions in integrated optics are important for improving interconnect losses between integrated optical devices of different dimensions as well as integrated optical devices and single mode fibers. Existing perturbation techniques will be extended to analyze radiation losses at step discontinuities in asymmetrical waveguides. This analytical work will be general enough to accommodate not only waveguide tapers but also axial inhomogeneities such as index and width variations as well as bends in the wave guides.